Mathematical Sciences: Numerical Analysis and Computation ofInvariant Manifolds

The principal investigator undertakes the analysis and implementation of numerical methods for the computation of invariant manifolds of dynamical systems and of invariant curves of maps. A feature of this work is to implement certain coordinate changes that will greatly extend the applicability of the algorithms. In most applications, the dynamical systems depend on one or more parameters; then the determination of suitable coordinates will be combined with the idea of path following. As long as the manifolds deform smoothly when system parameters change, the proposed methods will permit following the manifolds computationally. A longer-term goal is to study bifurcations of invariant manifolds numerically, in particular the breakdown of tori. It is expected that the region of breakdown will be characterized numerically by several turning points of the discrete solution branch, and that the number of turning points increases as the meshsize is refined. The proposed research will point the way towards the development of efficient algorithms for the computations of invariant manifolds, and will provide a valuable tool for the study of dynamical systems. Nonlinear dynamical systems play an important role in many areas of the applied sciences and of engineering and technology. For example, they are used to model flows around airplanes and submarines, vibrations of engines, currents in electrical networks, and blood flow in the heart. All these systems depend on parameters, which can partially be controlled or monitored. A practical problem of main importance is to predict the critical values of parameters, for which qualitative changes of the dynamical systems occur. These changes are called bifurcations. For example, a long-outstanding problem is to predict the transition from laminar to turbulent flow. Similarly, a vibrating structure can bifurcate from quasiperiodic to chaotic motion; the latter is unpredictable and might lead to the breakdown of the structure. The behavior of a dynamical system is often characterized by its properties on an invariant manifold. This project will develop numerical software to compute invariant manifolds and to follow them computationally as system parameters change. Important cases are given by invariant tori, which correspond to quasiperiodic (predictable) motion; breakdown of the tori corresponds to the transition to chaotic (unpredictable) motion. With algorithms developed in this work, one will be able to compute values for bifurcation parameters, i.e., one can predict parameter values for which major qualitative changes of the dynamical system will occur. The algorithms will be tested on systems of coupled oscillators and vibrating mechanical structures, but they will apply to other areas of the applied sciences where dynamical systems are used for modelling.